Dynamic/Thermodynamic Processes and Their Contribution to the Sea Ice Thickness Distribution and Radar Backscatter in the Ross Sea

This project is a study of the effects of antarctic sea ice in the global climate system, through an examination of how the spatial distribution of ice and snow thickness and of open water is reflected in satellite-based synthetic aperture radar (SAR) imagery. The field investigations will be carried out from the RVIB Nathaniel B. Palmer in winter 1998 and summer 1999, and will produce observations of the snow and ice distribution, the crystal structure, stable isotopes, salinity and temperature structure of ice cores, and the stratigraphy, grain size, and water content of the snow cover. The SAR images from ERS-2 and RADARSAT will be acquired at the McMurdo ground station, and processed at the Alaska SAR Facility. These will provide information about the large-scale ice motion field and the small-scale ice deformation field, both of which contribute to the observed ice thickness distribution. In addition, a study of the spatial and temporal variation of the backscattered microwave energy will contribute to the development of numerical models that simulate the dynamic and thermodynamic interactions among the sea ice, ocean, and atmosphere. The surface data is vital for the extraction of environmental information from the radar data, and for the ultimate validation of interactive models.